National Distance Learning Center

The National Distance Learning Center (NDLC) at Owensboro Community College is establishing a connection to NSFNET via an existing 1.544 million bits per second line through the University of Kentucky and the SURANET mid-level network. The connection enables the research and education community to access the NDLC database over the Internet as well as by modem, as is done now. Owensboro's faculty and students will also be able to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.